Partial Differential Equations related to the p-Laplacian

DMS-9970687
ABSTRACT

In this proposal, the PI considers problems in the theory of partial
differential equations suggested by the interplay of ideas in
nonlinear elasticity, image interpolation, control theory
and classical function theory. Recent developments in image interpolation and
nonlinear elasticity can be formulated as extension problems
for functions that have bounded derivatives. Typically, a function
is known only on a subset of its domain of definition.
The problem is to interpolate or extend it to the whole domain
maintaining the maximum possible regularity. This extension is
obtained by solving an elliptic boundary value problem.
The solution of these problems by standard elliptic partial
differential equations, including the Laplacian, always
results in a loss of regularity at the boundary.
To preserve the boundedness of the derivatives it
is necessary to use nonlinear elliptic equations that are highly
degenerate, whose mathematical theory has just begun to
be understood. The prototype of these operators is the so
called "infinite-Laplacian".

In many problems in physics and engineering one has to minimize
the average of a quadratic energy. The equations so obtained
are linear and are useful to describe small perturbations in
many cases. To describe large deviations, often one has to
consider nonlinear equations corresponding to non-quadratic
energies. If we try to minimize the
maximum of the energy, say to find out where is the maximum
voltage or stress, the resulting equations are of a very
nonlinear nature that requires a different mathematical
treatment than in the traditional linear theory. The PI proposes
to continue the development of the basic theory of these equations.
Among the possible applications we have image interpolation,
one of the basic operation in image processing, and
non-linear elasticity.